Experimental and Theoretical Studies of Model Chemical Reactions Under Variable Pressure and Temperature

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Ben-Amotz will study the influence of solute-solvent interactions on chemical reactions using pressure- and temperature-dependent optical spectroscopic studies as well as theoretical modeling. Dissociation, isomerization, and ion-pairing model reactions will be studied, and changes in the equilibrium constants for model reactions will be measured in organic solvents as well as in supercritical argon, xenon, and water using high-pressure Raman, FTIR, and UV/visible spectroscopies in diamond anvil supercritical fluid pressure cells. The results will be used to test theoretical models derived from liquid perturbation theory using both a first-principles approach as well as a semi-empirical perturbed hard fluid (PHF) model. Predicted and experimental results will be compared over a wide pressure and temperature range in both liquid and supercritical fluid solvents. The value of using predictive models to calculate properties of systems, especially those under extreme conditions of temperature or pressure, has become widely recognized by engineers. These studies will contribute to our ability to predict chemical reaction equilibria under increasingly extreme and complex condensed phase conditions. The results of this work are likely to be important to industrial chemical synthesis, waste recovery, and separation technologies.